Materials Research Laboratory

This award is for renewed support of the Materials Research Laboratory (MRL) at Harvard University under the direction of Henry Ehrenreich. The MRL is comprised of 21 faculty members from the Division of Applied Sciences and the Departments of Chemistry and Physics. The research program concentrates on collaborative, multidisciplinary efforts in major thrust areas; in addition, outstanding ideas from individual investigators are eligible for seed support. The MRL helps new faculty embark on MRL-related projects and supports central experimental facilities needed for a wide range of materials research activity on campus. There are research links with other MRL's and with industrial and government laboratories. There are 22 graduate students and 8 postdoctoral research associates in the program. A research program of expanded scope concentrated in three major thrust areas is planned. The thrust on structural and electronic transformations in solids includes studies of phase transitions, diffusion processes and crystal growth mechanisms in a variety of systems, and an increased emphasis on electronic transitions. Activities in the area of thin films, surfaces and interfaces include the intensive development of experimental facilities, the pursuit of interdisciplinary projects involving chemistry and physics, and planning for a surface facility to be operated jointly with the MRL at MIT. Collaborative efforts on thin films, wetting, adhesion, reconstruction and an expanded program of surface studies are proposed. The thrust on micromechanics has two major components, one directed towards a theoretical understanding of structural ceramics and the other, a collaborative effort with the MIT MRL and research groups in government and industry, addressing innovations in the technology of high-strength steels. The research quality in this MRL is outstanding, and the need to work collaboratively in order to make progress on major problems is driving most of the research proposed. The MRL management at Harvard is successfully fostering multidisciplinary, interactive research on the part of the faculty, and the resulting research environment for students and postdoctoral associates is superb. Strong links to industrial and government laboratories and to ther MRL's are highly beneficial. Central facilities are adequate and future plans for further development of the research facilities are very promising. This award will allow expanded scope of the MRL research program to the three thrust areas, provide seed funding for outstanding bew research, and provide strong continuing support for the central facilities, with particular emphasis on the interaction with MIT in the operation of new facilities.